III: Small: Query Mesh - A Novel Paradigm for Query Processing

Technological advances in positioning, sensor and monitoring
technology drive data acquisition devices to generate massive streams
of data. The goal of this research is to develop a new class of
high-performance stream data management systems capable of coping with
scenarios with infinite data arriving in large volumes, and with
near-real time response requirements.

The proposed query processing paradigm,
termed the multi-route query mesh model (QM), overcomes a
major limitation in current query optimizers, both static and stream
ones alike, namely the assignment of a single `best' query execution
plan for all input data. This approach, being based on the strong
assumption of data uniformity, results in substandard performance for
possibly all data items. Instead, query mesh adopts a processing
structure composed of a data classifier and a multiple route plan
infrastructure. Different learning models can be plugged as
classifier logic into the QM model. Given the complexity of the QM
solution space, cost-based search heuristics are designed to
efficiently find high-quality query meshes. QM is adaptive supporting
the detection and incremental modification of the QM classifier and
its routes.

The intellectual merit of this project lies in the design, development and
evaluation of a novel multi-route paradigm for stream query
processing, -- a perfect middle ground between the two current
extremes of single-plan versus route-less solutions. Experimental
studies compare query mesh to state-of-the-art solutions. QM impacts
society by facilitating a wide range of stream-centric applications,
including medical out-patient monitoring, emergency management, and
business intelligence processing, and by integrating project
activities with education.

Further information on this project can be found at the project
web page: http://dsrgweb.cs.wpi.edu:8180/DSRG/